Structure of Exoplanetary Atmospheres

AST-0507621
Terrence Rettig
University of Notre Dame
Structure of Exoplanetary Atmospheres
ABSTRACT
Experimental and analytical tools will be developed to detect and characterize exoplanetary
atmospheres during transits. Particular attention will be paid to HD 209458B (for which only atomic
species have been observed to date) and the detection of infrared H3 molecular absorption lines
using high resolution high signal-to-noise near infrared spectroscopy. As one of the dominant
regulators of thermal balance in gas giant ionospheres, this molecule is of interest as a diagnostic of
the atmospheric interface and will yield valuable information on the thermodynamic conditions in
the outer atmosphere. Analysis and statistical modeling of molecular absorption lines of H3 will
enable a direct probe of the temperature, column density and structure of the thermosphere of Hot
Jupiters and constrain current models. To meet the project goals, sophisticated data reduction and
analysis methods will also be formulated and employed.
The work here will provide input into the design and development of future instruments for the
detection of molecular absorption in exoplanetary atmospheres. The algorithms developed here will
also be made publicly available. Graduate students and undergraduates (through the NSF sponsored
Research Experiences for Undergraduates at Notre Dame) will play a significant role in the research
and subsequent dissemination.